REG: Advanced Computer-Aided Materials Testing System

9411906 Hui This Research Equipment Grant will make it possible for the Department of Mechanical Engineering at the University of New Orleans to purchase an advanced state of the art computer aided materials testing system. This equipment will impact the department and college by enhancing the capabilities and effectiveness of the faculty and graduate students in performing research and development in the fundamentals and applications of advanced materials and in enhancing the academic program by exposing graduate and undergraduate students to advanced materials testing procedures. ***